Stable Transition Boiling: Velocity and Subcooling Effects

An investigation of the potential for altering the boiling curve through the effects of high velocity and high subcooling is proposed. The emphasis of the research will be to design and perform experiments using a single liquid, Freon 113, flowing over an electrically heated cylinder in crossflow. The goal will be to demonstrate whether the unstable transition boiling region can be averted altogether under high velocity and subcooling for this liquid. The experiments will be carried out in a flow loop capable of circulating liquids at high volumetric flow rates. An electrically heated thin-walled Hastelloy-C cylinder, 0.635-cm in diameter, will be used as the test surface. It will be mounted in a 7.62 x 7.62 cm square test section. This research considers aspects of convective boiling in the transition region. The transition region of the boiling curve is typically avoided due t instability of the phenomenon as well as the lack of control of fluids under these conditions. The proposal seeks to entirely avert the transition region by employing a highly subcooled liquid at high velocities. Evidence is presented in the proposal to indicate that this conjecture has some justification, and this experimental effort will quantify this phenomena.